Characterization of Ice in the Chukchi Sea at the Start of the Growing Season using Satellite Synthetic Aperture Radar

9224190 Onstott This project will use Synthetic Aperture Radar (SAR) data obtained from the European Space Agency Earth Resources Satellite (ERS-1) to investigate the distribution of sea ice characteristics and thickness in the Chukchi Sea region north of Bering Strait. Satellite observation will be compared to in situ measurements and SAR signatures obtained from an instrument on board the USCGC Polar Star, and extended to observations made farther east in the Beaufort Sea during the LEADEX experiment of 1992. The distribution of sea ice characteristics and thickness is believed to be a significant indicator of climate change in polar regions. At this time our understanding of the processes that determine these factors, and our capability of determining the variability of sea ice on even the regional scale is inadequate. Consequently the proper interpretation of satellite microwave images appears to be potentially the most productive way to address questions of global change in polar regions. Since ERS-1 is the first of several satellites to carry an active microwave radar, research in this area is particularly timely. ***